Oceanographic Instrumentation - 1993

Woods Hole Oceanographic Institution (WHOI) requests funding to purchase shipboard instrumentation in support of NSF-funded research. The instruments will be used aboard the research vessels operated by WHOI, including the KNORR, OCEANUS, and ATLANTIS II. All of the instruments are for shared-use by a wide variety of scientists.